Multifaceted Research Experience for Industrial Engineering Undergraduates

9619728 Resnick ABSRACT Florida International University will create a program to provide sixteen undergraduate students each year with a multi-faceted research experience, combining technical research and methods in industrial engineering. Each summer, seven sophomores and juniors from institutions with limited research capabilities will be matched with research projects in manufacturing, ergonomics and operations research. Nine students from FIU, three each from sophomore, junior and senior years, will participate during the academic year. Three FIU students each year will also participate during the summer. All student will attend seminars in research opportunities, methods, ethics, interpersonal skills, leadership and communication. The structure of the program will support hierarchical mentoring whereby participants will be mentored by faculty, graduate students and other students. As a minority institution, FIU will stress the recruitment of underrepresented minorities as well as provide a diverse environment for all participants. ***